Joint U.S.- U.S.S.R Workshop: Native Welfare and Vital Statistics in the Soviet Northeast and Alaska

This workshop proposal will bring together US and Soviet experts for purposes of comparing population and sociological data on rural northern settlements in the Soviet Northeast and Alaska. These data are essential for understanding northern community viability, and problems such as violence, suicide, life expectancy and health care delivery. The workshop will be the first significant data exchange of Arctic demographic and vital statistics between Russian and American researchers, and will provide a basis for future joint research within this critical area.